Acquisition of a Gas Chromatograph-Combustion-Isotope Ratio Mass Spectrometer System.

This is a proposal to acquire a gas chromatograph-combustion- isotope ratio mass spectrometry instrument. The apparatus inclues a capillary gas chromatograph used to separate organic compounds, a combustion interface utilized to convert carbon compounds into CO2, and a sensitive isotope ratio mass spectrometer equipped with a triple collector, a mechanism to switch to a standard gas, and the electronics for simultaneous recording of major CO2 ions. Projects to be pursued include sedimenary biogeochemical processes that are driven by microbial transformations of organic matter; organic matter deposition occurring near the sediment-water interface; chemosynthetic pathways and the fossil record; and sources and fates of amino acids.